SBIR Phase I: Low Cost Composite Plate for Proton Exchange Membrane (PEM) Fuel Cell

*** ABSTRACT 9661078 Bloomfield This Small Business Innovation Research Phase I project will investigate the use of titanium nitride coated aluminum in proton exchange membrane (PEM) fuel cell bipolar plates as a replacement to the carbon and titanium bipolar plate parts currently in use. Simplified bipolar plate fabrication methods will also be examined during the course of this research effort. Although the power generation problems for PEM fuel cells have largely been solved, problems with weight and cost remain. One of the heaviest and costliest components in a fuel cell stack is the bipolar plate. During the Phase I program, Analytic Power will determine the feasibility of using titanium nitride coated low cost metals, the type(s) of plastic that can be used for seal frames, and whether or not the plastic-to-metal bond is adequate for use in pressurized fuel cells. The proposed materials and methods will be incorporated into the fabrication of fuel cell stacks and flow distribution, water management and sub-stack performance tests to evaluate the new materials and fabrication methods will be conducted. Success in this program will lead to dramatic reductions in PEM fuel cell stack costs. This reduction in cost will bolster efforts underway to introduce PEM fuel cells into next generation vehicles. Cost reductions achieved by this research effort will also further the commercialization of PEM fuel cells as either stationary or portable power generation units. ***